Timing and Spatial Distribution of Antarctic Ice Sheet Growth and Sea-ice Formation across the Eocene-Oligocene Transition

Abstract (non-technical)
Sea level rise is a problem of global importance and it is increasingly affecting the tens of millions of Americans living along coastlines. The melting of glaciers in mountain areas worldwide in response to global warming is a major cause of sea level rise and increases in nuisance coastal flooding. However, the world's largest land-based ice sheets are situated in the Polar Regions and their response under continued warming is very difficult to predict. One reason for this uncertainty is a lack of observations of ice behavior and melt under conditions of warming, as it is a relatively new global climate state lasting only a few generations so far. Researchers will investigate ice growth on Antarctica under past warm conditions using geological archives embedded in the layers of sand and mud under the sea floor near Antarctica. By peeling back at the layers beneath the seafloor investigators can read the history book of past events affecting the ice sheet. The Antarctic continent on the South Pole, carries the largest ice mass in the world. The investigator's findings will substantially improve scientists understanding of the response of ice sheets to global warming and its effect on sea level rise.

Abstract (technical)
The melt of land based ice is raising global sea levels with at present only minor contributions from polar ice sheets. However, the future role of polar ice sheets in climate change is one of the most critical uncertainties in predictions of sea level rise around the globe. The respective roles of oceanic and atmospheric greenhouse forcing on ice sheets are poorly addressed with recent measurements of polar climatology, because of the extreme rise in greenhouse forcing the earth is experiencing at this time. Data on the evolution of the West Antarctic ice sheet is particularly sparse. To address the data gap, researchers will reconstruct the timing and spatial distribution of Antarctic ice growth through the last greenhouse to icehouse climate transition around 37 to 33 Ma. They will collect sedimentological and geochemical data on core samples from a high-latitude paleoarchive to trace the shutdown of the chemical weathering system, the onset of glacial erosion, ice rafting, and sea ice development, as East and West Antarctic ice sheets coalesced in the Weddell Sea sector. Their findings will lead to profound increases in the understanding of the role of greenhouse forcing in ice sheet development and its effect on the global climate system.